DragonflyTV - A New National Television Series for Children

9804617 Hudson Twin Cities Public Television (KCTA) is producing and evaluating a pilot for a new science series for children ages 8-12 to be produced in conjunction with Miami University of Ohio and the National Science Teachers Association (NSTA). Called Dragonfly, the pilot will be based on the children's magazine of the same name and will consist of segments presented by children that document their own science investigations and presentations by professional scientists of work in related fields. Each program will include two or more presentations by children, one or two presentations by scientists, a science challenge to be resolved within the show, one or two hands-on activities to engage viewers at home, and a presentation of children's artwork or poem in which they express their impressions of science and nature. The series would be coordinated with the Dragonfly magazine and with a parallel program, Dragonfly Quest, an Internet and youth-based activity pilot endeavor funded under another grant. The Executive Producer would be Richard Hudson, who has previously served as Executive Producer for Newton's Apple, a series also produced by KCTA. Chris Myers, of Miami University and creator of the magazine, will have primary responsibility for the science content, and Phyllis Marcuccio at the NSTA will be responsible for the coordination between the television project and the magazine, which is published by NSTA. The producers will work with an advisory committee that includes Gerald Wheeler, Lawrence Lowery, Joan McShane, Hardy Eshbaugh, Shawn Carlson, Kenneth Phillips, Milton Chen, James Steinbach, and Cheryl Gotthelf.